Mechanistic Understanding of Reaction-Driven Fracturing for Carbon Mineralization

A durable way to reduce atmospheric carbon dioxide is to store it underground in rocks that convert it into solid minerals. Nature does this already, but slowly. Formed minerals can clog pores and choke off reactions, yet mineral growth expands the surrounding rock and can crack it, exposing fresh surfaces that accelerate trapping. This project seeks fundamental understanding of when each outcome occurs, knowledge needed for practical decarbonization, designing infrastructure materials (e.g., concrete) that strengthen by absorbing carbon dioxide, and producing hydrogen underground. The project will train doctoral students and work with communications undergraduates to produce free public videos on carbon storage.

This project will develop mechanistic understanding of fracturing driven by volume-expanding mineral reactions (reactive cracking) in porous rocks relevant to carbon mineralization. Combining bench-scale experiments with microscale models coupling fluid flow, reactions, and fracture, the project will map the governing regimes that determine whether expansion creates new reactive areas or seals the pore space. The knowledge will be used to assess carbonation potential in candidate minerals and assess whether reactive cracking can be harnessed to promote–or, where undesirable, suppress–carbonation at practically relevant time scales and quantities. Outcomes will include open-source software, benchmark data, and a community workshop.